Advanced NMR Techniques for Small College Faculty

This regional workshop for faculty from small four-year colleges in New York and New England focuses on advanced NMR techniques and the introducion of this topic into undergraduate teaching programs. The formal instruction and hands-on instrument use includes such topics as Fourier transform techniques, relaxation measurements, C-13 multiple pulse techniques, solvent suppression, two dimensional NMR, NMR of solids, and integration of NMR techniques into course work. There will be an opportunity for five participants to join host institution's faculty in various research projects for an additional six weeks. Participants will be able to return during the academic year with their students for undergraduate oriented weekend NMR workshops.